Support for a Joint DOE/NSF Panel Review of B-factory Proposals

9320424 Robbins This award if for the Department of Energy (DOE) budget request for FY 1994 includes funding for an asymmetric B- factory at a site to be determined and specifies that the DOE and the National Science Foundation conduct a technical review of the B-factory proposals from Cornell University and from the Stanford Linear Accelerator Center. Mr. Leon Panetta, Director of the Office of Management and Budget, directed the two agencies to carry out the review. This award covers one- half of the joint review committee expenses, as agreed by the two agencies. ***